CISE Research Instrumentation

A dexterous manipulator with seven degrees of freedom shall be obtained for research projects involving mobile robots with high degrees of freedom. These projects include: * Behavior-based control. * Impedance algorithms. * Error recovery * Parallel numerical algorithms for redundant robots. * Robust and fault-tolerant robotics visual tracking and servoing.